International Participation in Joint Conference on Digital Libraries (JCDL) and Hypertext 2008

IIS - 0836305
International Participation in JCDL and Hypertext 2008
Larsen, Ronald L.
University of Pittsburgh

This award provides support for travel for several international scholars to attend the Joint Conference on Digital Libraries (JCDL) and in the Hypertext conference, to be held consecutively in Pittsburgh, PA, June 16-21, 2008. The invitees are major figures in their respective digital libraries communities and manage and organize activities in Europe and Africa that have significant bearing on building international interoperable repositories. Their participation both provides valuable information on research and infrastructure agendas in their countries and will extend international dialogue and collaboration.